An Undergraduate Optical Electromagnetic Wave Laboratory.

This project will develop a laboratory to demonstrate electromagnetic wave principles in the optical region. Using a light valve projector system, the principles of birefringence, polarization, illumination, interferometry, optical Fourier transforms, light valves, and conventional optics will be demonstrated.